Dynamics Conference Support: Convergence Problems in Analysis and Ergodic Theory

The dynamics group in the Department of Mathematics at the University of Maryland, College Park, seeks support for a dynamics conference in spring of the years 2004, 2005 and 2006. This represents our half of the Semi-annual Workshop in Dynamical Systems and Related Topics, cosponsored for the last 12 years by the dynamics groups of Maryland and Penn State. The organizers will rotate among the dynamics group, including K. Berg, M. Boyle, M. Brin, D. Dolgopyat, B. Hunt, M. Jakobson, D. Rudolph, and J. Yorke. Each year 2 or 3 of us will organize the meeting.

The goals of this conference are to promote the communication of mathematical results; to facilitate interaction and progress in dynamical systems and related fields; to nurture the sense of community and common mission in these fields; and to contribute to the training of graduate students and recent Ph.D. recipients and to their integration into the dynamics community.